CSR: SMALL: Automatically Detecting, Diagnosing and Resolving Abnormal Battery Drain Issues on Smartphone Systems

This project presents a software system to have the smartphone itself deal with the abnormal battery drain (ABD) issues that are caused by 'battery bugs' in smartphone applications or system software as well as by battery-related configuration errors and environmental changes. The proposed system architecture contains four subsystems, namely information collection, data analysis, diagnosis, and resolution, to self-detect, self-diagnose, and self-recover with little user intervention if possible when ABD events happen. Various technical methods, including machine learning and statistical approaches, will be investigated to achieve the design goal.